Talladega College Research for Minority Scholars Program

The Division of Natural and Computational Sciences and Talladega College will conduct a RCMS Program designed to prepare talented minority undergraduates for graduate and professional school in science, engineering and technology fields. More specifically, the objectives of the project re to: o increase the number of highly qualified potential science majors entering Talladega College o Enhance preparation and retention of Talladega science and pre-engineering students for graduate and professional school o facilitate the entry of a greater number of Talladega College students into graduate and professional school in science and engineering fields To achieve the objectives, several elements categories of activities are proposed, namely: o outreach and recruitment o bridge summer program between high school and Talladega College o curriculum embellishments and strengthened course sequences o summer and academic research at major research universities: o strong counseling and advising o financial support Through an intense outreach effort, talented minority high school students will be recruited for participation in a four year comprehensive RCMS science program involving the disciplines of Chemistry, Physics, Mathematics, Computer Science and Biology, with dual degree option in geology and engineering. RCMS Scholars will be provided with financial support consisting, in part, of tuition and fees.